Water Water Everywhere, An Exhibition

The Staten Island Children's Museum requests support for an interactive exhibition for children on the topic of water. WATER WATER EVERYWHERE will open in April 1991 and remain on view for three years; a smaller replica of the exhibition will be ready to travel in the Spring of 1992. The first year will allow an initial evaluation period during which both design and content can be improved. The exhibition has dual goals: to provide family audiences, focusing on children, with the materials and context that encourage experimentation and learning, and to educate visitors about an essential and widespread constituent of our world. WATER will present different aspects of this varied subject in six sections: the many forms of water in our world; the properties of water; how living things use water; how water works for us; experiments with water and local water issues. The exhibition will engage children imaginatively, inform, provide opportunities to experiment and learn, and stimulate creativity. Museum public programs and activities will be offered in conjunction with WATER to both extend and enrich the project. WATER will contribute to both children's and inter- generational learning. Its desired outcomes include further development of the Museum's critical thinking skills program, expansion of our renewed Informal Science Education Program, extension of our community service programs and heightening our participation in community issues, such as the environment, through the ecological aspect of the exhibition. By touring the exhibition and producing educational materials based on WATER, the Museum will extend its impact in learning skills, science education and environmental awareness to a scale that is potentially national.